U.S. Participation in International Engineering Organizations

This is a $150,000, renewal of ENG-9047818. This renewal is intended to maintain support of the International Affairs Commission of the AAES, and the Coordination by that commission to ensure continued US presence in the World Federation of Engineering Organization (WFEO) and the Pan American Federation of Engineering Societies (UPADI). The principal activity under this grant is the promotion and development of the concept of sustainable development both worldwide and through WFEO and in the Western Hemisphere through UPADI. This action will award $75,000 in FY '92 and unilaterally fund the remaining $75,000 in FY '93.